Acquisition of a High-Abundance-Sensitivity Thermal Ionization Mass Spectrometer

Rubin 9314503 The PI will buy a high abundance of sensitive thermal ionization mass spectromenter. This machine will be used to carry out U/Th disequilibria studies on oceanic bassalts, dating of coral reefs, and the evolution of the mantle.